iCAIR Workshop on Middleware: Allen Conference Center, Northwestern University's Evanston Campus, Evanston, Illinois: (December 3 - 4, 1998)

This award supports some of the cost of a national workshop on advanced
networking middleware. There are three goals for the workshop: (a) development of
an acceptable definition for the concept of "networking middleware," (b)
identification of core components for a networking middleware
infrastructure "layer," and (c) identification of needed research related
to components and to their involvement in a networking testbed. Though
results will be of benefit to many in the research community, the workshop
report will be of particular use to the Advanced Network Infrastructure
program at NSF in its deliberations about future advanced networking programs.